Young Scholars Program at Clark Atlanta University

This Clark Atlanta University program seeks to provide intellectually challenging experiences in classroom instruction and hands-on research experiences in the biological sciences and chemistry for 30 students entering grades 8-12. The six-week program is for residential and commuting students in a Young Scholars Program designed to increase their interest and knowledge about career opportunities in the mathematical and natural sciences. The participants will also be made aware of the academic preparation required to pursue these careers through classroom instruction, weekly seminars, and field trips. Participants in grades 10-12 will spend 75% of their work day in research laboratories as members of on-going research teams consisting of research professors, graduate and undergraduate students. Participants in grades 8 and 9 will enroll in a laboratory-based, interdisciplinary science course that emphasizes research methodology, problem solving and critical thinking. Academic year follow-up activities represent a critical component of the program.